Phylogenetic models of trait evolution for discordant evolutionary histories

Phylogenetic comparative methods are a toolkit of statistical methods which use knowledge of evolutionary relationships among species to infer how characteristics of those species vary over time. These methods are essential components of modern evolutionary biology, and have provided valuable insights across a range of topics including the spread of human disease vectors, adaptive variation in the wild relatives of agricultural plants and animals, and conservation biology. A core component of comparative methods are mathematical models of trait evolution, which provide statistical expectations for how various kinds of traits are expected to change over evolutionary time. These models overwhelmingly assume that the history of divergence among species is captured by a single, binary evolutionary tree. In reality, mutations that affect trait variation happen at individual genes, which, due to the exchange of genetic material between individuals called recombination, can have independent evolutionary histories that may differ from one another. This means that the current suite of models are limited in their ability to capture the realistic genetic underpinnings of most traits, leading to inference errors. This project develops new models that begin to address these limitations by considering evolutionary relationships across individual genes (i.e. “gene trees”), rather than a single, species-level tree. These models will inform new statistical approaches to evolutionary inference that will be implemented in free, open-source software tools for use by researchers and educators.

The project will develop new statistical approaches that model the covariance structure among species using the full distribution of gene tree topologies and branch lengths, rather than a single species tree, capturing the effects of biological processes that generate gene tree discordance, including incomplete lineage sorting and introgression. Using this framework, the project will address three inference problems in phylogenetic comparative methods: 1) inter-locus variation in the rate and effect size of mutations that affect variation in quantitative traits; 2) inferring the action of stabilizing selection on quantitative traits; 3) estimating the rate of evolution of discrete characters. For each task, the project will develop a gene tree-based model, conduct a simulation study to evaluate the consequences of gene tree discordance for standard phylogenetic comparative inferences from species trees, and then implement a new likelihood-based inference approach in statistical software. Each method will be applied to empirical use cases, highlighting how the models can provide new insights into the evolutionary forces shaping trait variation, including helping identify potentially economically important traits with applications in biotechnology, public health, or conservation.